Far-Infrared Spectroscopy of Adsorbate-Substrate Vibrations

They will construct an instrument capable of high-resolution infrared reflection-absorption spectroscopy of absorbates on single-crystal metal surfaces, over the frequency range 350 - 4000 cm-1. The system will include a sensitive photo- conductive detector, a liquid nitrogen cooled grating monochromator and a full array of standard surface analysis equipment. Application will be made to the dynamics of absorbate-substrate vibrations by careful study of linewidths and line shapes, to interactions of absorbates with co-absorbed alkali metal atoms, and to absorption on semiconductors.